American Geophysical Union (AGU) Chapman Conference on Physics and Modelling of the Inner Magnetosphere; Helsinki, Finland; August 25-29, 2003

This project will provide travel support for U.S. graduate students and postdoctoral students to attend an American Geophysical Union Chapman connference on the Physics and Modeling of the Inner Magnetosphere. The conference will be held in Helsinki, Finland from August 25-29, 2003. Funding for European student participation is being provided by the Finnish Academy of Sciences.